U.S.-Japan Cooperative Research: Isolation of Neurospora Genes that Respond to Ultraviolet Damage

9315439 Sachs This award supports a two-year cooperative science project between Dr. Matthew Sachs, Assistant Professor, Department of Chemistry, Biochemistry, and Molecular Biology, Oregon Graduate Institute of Science and Technology, and Professor Hirokazu Inoue, Department of Regulation Biology, Saitama University, Urawa, Japan. The goal of the collaborative effort is to obtain cDNA clones for Neurospora crassa genes that are induced in response to ultraviolet light damage. The investigators will use sensitive differential hybridization techniques to identify these clones in cDNA libraries prepared from UV-induced cultures. They will also prepare libraries using this cDNA to enable expression in yeast and bacteria, providing additional powerful approaches to understand gene functions. This collaboration will provide the basis for an increased understanding by the scientists in the U.S. and Japanese laboratories about the functions of genes induced by mutagenic events as well as the mechanisms that control the expression of these genes. ***